POWRE: Integrated Modeling and Diagnostic Analysis for HVOF Thermal Spray Process

Abstract
CTS-0074589
Lili Zheng, SUNY Stony Brook

This POWRE proposal describes the activities to conduct exploratory work on the combined modeling and diagnostic analysis research for the High Velocity Oxygen Fuel (HVOF) thermal spray process.
The primary research activities are: (1) developing theory and models for the HVOF spraying process; (2) conducting HVOF spray experiments; (3) validating the models using the information obtained from the experiments conducted during this program or from other programs; and (4) visiting the thermal spray laboratory at Idaho National Engineering and Environmental Laboratory (INEEL) and other institutions to learn advanced diagnostic techniques for thermal spray processes.
A numerical model will be developed that can connect the particle/jet interaction and the droplet/substrate interaction. Exploratory experiments using existing facilities at the NSF Center for Thermal Spray Research at Stony Brook will be conducted for three types of powder materials: ceramic (Al2O3), cermet (WC-Co) and metal (Co). The particle velocity, temperature and size during in-flight and the evolution of the coating layers will be acquired and data will be used for validating the model. Thus the model can be further developed and applied to designing and controlling thermal spray processes in the future. The PI will visit national laboratories and other institutes to establish the collaborative relationship and explore advanced non-intrusive diagnostic techniques for thermal spray research such as Rayleigh and Coherent Thomson Scattering and Coherent Anti-Stokes Raman Spectroscopy.
The main objective of the proposed educational activities is to attract student to science and engineering, to motivate them for advanced studies and multidisciplinary research, and to prepare them for career advancement in engineering.